PostDoctoral Research Fellowship

This award is made as part of the FY 2012 Mathematical Sciences Postdoctoral Research Fellowships Program. These fellowships support a research and training plan at a host institution in the mathematical sciences, including applications to other disciplines. The title of the research fellowship awarded to Ameerah N. Chowdhury is "Shadows and Intersections." The host institution for the fellowship is University of California, Los Angeles, and the sponsoring scientist is Dr. Benjamin Sudakov.